Commentary for New LRFD Seismic Criteria

In 1986, the new AISC Load and Resistance Factor Design (LRFD) Specification was introduced which makes the limit state design of steel buildings as an alternate to the traditional Allowable Stress Design. LRFD represents a major advancement in steel design technology that is based on safety reliability concepts and an explicit consideration of factored loads and limit states. However, the Specification is primarily intended for designs governed by gravity or wind loads. Thus, in regions of high and moderate seismicity, supplemental special detailing requirements are necessary to provide adequate structural ductility and energy absorption commensurate with the degree of earthquake risk. The currently available seismic detailing provisions are in allowable stress terms and, therefore, are not directly compatible with LRFD. The development of a set of seismic design provisions, for the first time in LRFD format, has recently been completed by an expert AISC Subcommittee. Only the preparation of an appropriate Commentary remains before this needed document can be published and broadly distributed for LRFD design applications. This project will support a concerted effort over the next 3-6 months on the Commentary to finish this document and satisfy the urgent needs of engineers and building code officials. This will help maintain proper design practice and safety levels as LRFD is used for seismic conditions. The tasks will include review and listing of related research references, thorough explanation of background material and practical implications of criteria, and discussion/artwork of additional general suggestions not covered directly by the provisions.